REU/SGER: Phase-Space Ordination and the Complexity of Successional Trajectories

There has been a renewed interest in the theoretical and experimental analysis of pattern and process during succession. Although much current research focuses on mechanistic processes causing successional change, hierarchy theory allows us to explore patterns and their causes at any spatial scale of interest. The purpose of this research is to analyze the complexity of successional trajectories in phase-space ordination. The P.I.'s propose to use ordination methods such as canonical correspondence analysis to construct successional vectors in phase-space. The complexity of the successional trajectories in phase-space can be measured using fractals. The P.I.'s will analyze the complexity of succession in three sets of field data: ten long term plots at Hutcheson Memorial Forest, New Jersey, (2) two samples of a chronosequence at Cedar Creek Natural History Area, Minnesota, and (3) eight long-term plots from the Rothamstad Park Grass Experiment, Harpenden, UK. In addition, they will use ZELIG, a spatially explicit forest succession simulation model (available to us through the Konza Prairie Long-term Ecological Research site), to simulate forest succession at different spatial scales. From the model output, they can determine the effects of spatial scale and time interval between samples on the measurement of complexity during succession. In addition, they can compare patterns of complexity in the model output to patterns in the field data. The methods described in this proposal go beyond the traditional individual- population-community hierarchy to provide a unique approach for analyzing and describing complex patterns in plant community dynamics. Further development of such model will provide important insights into change currently taking place in the environment.